International Workshop on Robust Control - March 9-10, 2001, Rice Univ., Houston, TX

Control theory witnessed explosive growth in the latter half of the 20th century. The field matured into an elegant and rigorous scientific discipline as a result of developments in linear quadratic optimal control, geometric structure theory, robustness analysis and synthesis, H-infinity and L1 optimal control.

The invited speakers include many pioneering researchers who created or contributed to, some of the above fields. The workshop will provide the opportunity for this outstanding group of system and control scientists to assemble and discuss the status of the field. Its impact on the course of this discipline cannot be overstated. For this reason we plan to assemble the papers presented at the Workshop in book form.